Delamination Propagation in Advanced Composites - Modelling and Experiments

An Phase I SBIR proposal will study the growth of delaminations (different shapes, sizes and locations) in composite structures under steady and cyclic loadings. The study will develop computer models that will be checked against their experiments.